FL/GA Louis Stokes Alliance for Minority Participation

Florida A&M University proposes to serve as the institutional host-site for the
Florida - Georgia Louis Stokes Alliance for Minority Participation (FGLSAMP) during
Phase IV program operations. FGLSAMP is designed to promote and facilitate the
programmatic goals of the National Science Foundation's (NSF) LSAMP program under
the HRD Directorate. In accordance with the goals, objectives and effort of NSF to
address the low participation and degree production within science, technology,
engineering, and mathematics (STEM) by those ethnic groups identified as
underrepresented in STEM disciplines, FGLSAMP will address this problem through its
programmatic structure which promotes enhancement of academic performance,
undergraduate research experiences, professional development, and preparation for
pursuing STEM graduate degrees. The standard of success will be measured by our
student participants': progression (to attain the B.S. degree); retention (within STEM
disciplines); graduation (timely attainment); and STEM graduate enrollment
(increasing STEM Minority enrollment). FGLSAMP will continue to employ a holistic
approach to reform undergraduate education in the STEM disciplines along with
identified "beast practices" as determined through it Steering Committee, while
determining means to enhance and provide new program activities. FGLSAMP is
designed to include a firm commitment of institutional administrators, faculty, staff,
external partners, as well as parents and students.
The goals of FGLSAMP are to significantly increase both the number of
underrepresented minorities pursuing undergraduate degrees in STEM disciplines and the
number of STEM B.S. degree recipients pursuing STEM graduate degrees. FGLSAMP
will provide training opportunities to students in STEM disciplines while also providing
an array of academic performance enhancement and support that will yield greater STEM
retention and graduations rates among underrepresented STEM minorities. Additionally,
to address the numbers of STEM B.S. recipients pursuing STEM graduate degrees,
FGLSAMP has developed a formalize program component to prepare its undergraduate
participants to pursue graduate degrees. This will be accomplished through an intensive
programmatic design that has been accepted and adopted by the FGLSAMP Steering
Committee. FGLSAMP will continue provide assistance for undergraduate research
experiences that will include the introduction of international research opportunities for
student participants. FGLSAMP will also continue to build and strengthen ties and
inclusion of community colleges by the inclusion of 2 new associate level partners within
the alliance. Community Colleges are a valuable source of human capital to enter the
STEM academic pipeline.
FGLSAMP program operations will be met through annual financial support from the
National Science Foundation, a special appropriation from the State of Florida.
Through the addition of two additional community colleges, FGLSAMP will be
able to: 1) stimulate and increase student awareness of academic and professional
opportunities in STEM areas and 2) create a larger network/pipeline between the
community college students and FGLSAMP undergraduate institutions with which these
two community colleges are affiliated. FGLSAMP will also capitalize and capture
greater numbers of potential STEM majors prior to graduation and transfer to the upper
division.